Spatiotemporal Dynamics in Chemical Systems

Kenneth Showalter of West Virginia University is supported by a grant from The Theoretical and Computational Chemistry Program to continue his experimental research in the area of spatiotemporal dynamics in chemical systems. Showalter proposes three main lines of research: 1) studies of perturbation-induced spatiotemporal behavior; 2) the development of chemomechanical gel systems that respond to chemical waves and patterns; and 3) studies of spatiotemporal behavior in gas phase reactions. Experimental investigations will be combined with theoretical and computational analyses in each case.

The study of nonlinear dynamics is an important tool for understanding complexity in nature. The dynamics of most biological systems involves spatiotemporal behavior, which remains a challenging and important topic in nonlinear dynamics. Chemical systems play an important role in advancing our understanding of nonlinear dynamics because they are particularly amenable to experimental and theoretical analyses and hence serve as ideal model systems. Showalter's research serves to elucidate the fundamental characteristics of chemical systems that exhibit pattern formation and complex space-time behavior.